Analysis of Landsliding and Tectonic Deformation in the Epicentral Area of the Loma Prieta Earthquake

This research is to determine and analyze surface deformation patterns due to landsliding and tectonic deformations associated with the October 17, 1989, Loma Prieta earthquake in California. The tectonic deformation fields will then be interpreted in terms of stresses and displacements computed from theoretical models of faulting. This research is a contribution to the National Earthquake Hazard Reduction Program.